Applied Laser Spectroscopy

The objective of this three-year U.S.-Yugoslav cooperative research project in applied laser spectroscopy between Pajo V. Cvijin of Belgrade's Institute of Physics and George H. Atkinson from the University of Arizona is to study the fundamental aspects of laser photoaccoustic spectroscopy and its application to research in environmental and atmospheric sciences. Both investigators have devoted a significant part of their research effort to the development of ultrasensitive detection methods for atmospheric pollutants. The proposed cooperation will broaden the research of both groups by combining the Belgrade expertise in photoaccoustic spectroscopy applied to the the infrared spectral region with the Arizona group's work in the visible and ultra violet spectral regions. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.